Workshop on the Future of Database System Research

The primary objective of the "Workshop on the Future of Database Systems Research" is to enumerate the most promising directions for database research in the broadest sense and to explore what can be expected to be achieved in the next decade. A secondary purpose is to examine existing technologies in related fields and foster interaction with researchers in those fields. The emphasis will be placed on collaborative research leading towards building of the next generation of intelligent information systems, comprised of multi-media databases distributed over a large geographical area. To that end, a panel including representatives of all aspects of database systems, with special care to include researchers from related fields will be chosen. The workshop participants will prepare a position paper that will be submitted to NSF and also will be made available to a wide community involved in database research and development, management or planning. The objective of this report is to make valid predictions and to explain the field and its challenges.